STI: Marist Grid Collaboration in Support of Advanced Internet and Research Applications

This project will establish a grid testbed to provide opportunities for faculty members to develop and test applications. The Grid testbed will allow collaborators at other schools to gain knowledge and experience enabling institutions to train their faculty and students to utilize the Grid for their future applications...Existing and future applications will be used to test the viability of the grid and provide a means to improve the grid technology. This project has six primary objectives:

1. To pilot tested Grid technologies (such as Globus Toolkit) as described in the NSF Middleware Initiatives;
2. To establish a layer of Trust among diverse constituencies and document experiences with authentication/messaging systems for sharing resources over the Grid;
3. To experiment with and document a roadmap architecture for archival, backup;and recovery of data storage and provisioning best practices among participant site teams;
4. Identify issues related to job scheduling, load balancing and firewalls interoperability architecture;
5. To pilot exiting and/or new faculty applications on the Grid testbed;
6. To disseminate applications, findings, and outcomes of interest to a broad range of users; and
7. To expand Grid participants upon successful deployment in order to narrow the existing infrastructure gap."